Career: Interfacial Phenomena Associated with Complex NAPLs in Subsurface Systems

9501567 Powers This is an award to provide the support this investigator requested in response to NSF 94-101, the National Science Foundation Faculty Early Career Development (CAREER) Program which has the intent of encouraging the early development of academic faculty as educators and researchers. The research this investigator plans to conduct is directed toward improving our understanding of nonaqueous phase liquid entrapment and dissolution processes in heterogeneous subsurface systems, to formulate conduct mathematical models and experimentally verify them to test hypotheses descriptive of the dissolution processes. Her education plan involves using the results of the research to formulate open ended problems and using them as a basis for providing experiential learning opportunities for students. Results are expected to provide a more fundamental understanding of phenomena associated with movement of nonaqueous fluids through porous media than now exists leading to an improvement in models used in engineering design of remediation processes and systems for decontamination of soils contaminated with these types of fluids. The teaching plan this investigator plans to pursue is likely to produce innovations in the use of computer programs as tools for engineering analysis and design. ***